Research Experiences for Undergraduates: Porous Media Transport and Bio-kinetics in Environmental Engineering

The Cornell University REU program in the Department of Agricultural and Biological Engineering is focussed on porous media flow and biokinetic processes. Both topics are of great interest to agricultural and biological engineering students. Activities in composting organic materials and flow paths and associated biodegradation in field soils are planned. The program is divided into a summer and academic year program. An environment where learning and sharing of experiences is encouraged is provided. The learning will occur during formal seminars and informal meetings between fellows, professors and their research group. During the summer program, fellows will be housed together and dinners are shared with various members of the research team.